Analysis, Geometry, and Spectral Theory On or Off Fractals

ABSTRACT

The PI intends to pursue and amplify his investigations of the
relationships between spectral and fractal geometry. We plan to study the
vibrations of "fractal drums", both "drums with fractal boundary"
(Laplacians on open sets with very irregular boundary) and "drums with
fractal membrane" (Laplacians on fractals themselves). The proposed
problems are closely connected to Kac's question "Can one hear the shape of
a drum?" and to its beautiful extensions from the "smooth" to the "fractal"
domain by the physicist Michael Berry. Although the proposed theory is
mathematically rigorous, it is also naturally physically motivated (with,
for example, applications to the scattering of waves by fractal surfaces
and the study of porous media), and has recently drawn some of its impetus
from the use of computer graphics. Moreover, we propose to use and extend
the theory of "complex dimensions" of "fractal strings" (one-dimensional
drums with fractal boundary)-recently developed extensively by the PI and
Machiel van Frankenhuysen in the research monograph [La-vF2] on "Fractal
Geometry and Number Theory" and motivated in part by the PI's earlier joint
work with Carl Pomerance [LaPo] and Helmut Maier [LaMa] on (direct and)
inverse spectral problems for fractal strings and the Riemann hypothesis-in
order to study the fascinating oscillatory phenomena occurring in the
geometry and in the spectrum of "drums with fractal boundary" and of "drums
with fractal membrane". ("Complex dimensions" are defined as the poles of
a suitable geometric zeta function. Further, in [La-vF], a detailed study
of their structure is given, for example, in the case of self-similar fractal strings.)

We plan to further develop analysis and spectral theory on fractals and on
regions with fractal boundary, as well as to investigate problems of a
'dynamical nature', of physical significance in condensed matter and solid
state physics; for example, in the study of mechanical or electrical
transport in porous or in random media, as well as of heat diffusions on
fractals and in disordered systems. We also intend to pursue our
mathematical and computer graphics-aided study ([LaPa], [LaNRG]) of partial
differential equations (PDEs)-such as the Laplace, heat and (linear or
nonlinear) wave equations-on regions with fractal boundary or on fractals
themselves. According to appealing experiments and interpretations by the
physicist Bernard Sapoval, this work may help understand the formation of
fractal structures (for example, coastlines, trees and blood vessels) in
nature. In the long term, it is hoped that the tools and results developed
in this project (and in the PI's earlier investigations) will help us to
probe more deeply than has been so far possible the fine geometric
structure of fractals and of related 'objects' occurring in mathematics
and in physics.